Transforming Introductory Undergraduate Science Courses

This project addresses three questions: 1) How can we transform introductory math and science courses to provide a more interactive experience for students within the financial constraints of a large state university? 2) In what ways can information technology be used effectively to improve undergraduate science education? and 3) How can research departments and schools of education work together effectively to recruit and train talented students into careers in K-12 math and science education? The author of this proposal has developed a transformed section of introductory undergraduate astronomy that emphasizes inquiry-based and collaborative learning with the aid of web-based information technology. Key elements of the transformed class include: a) Replacing lectures with content delivery through a web-based hypertext that is rich in multimedia simulations and links for exploration; b) Dividing a large (~200 students) class into "learning teams" of ~12 students each who meet once a week in a computer classroom to prepare answers to pre-posed "discussion questions" and so work collaboratively on team projects; c) Software and course design to facilitate synchronous and asynchronous communication among students in learning teams; d) Blocks of instruction for inquiry-based collaborative learning using Java-based simulations; and e) The employment of undergraduate learning assistants to supervise the learning teams. The author has also worked with faculty from other science and math research departments and faculty of the school of education in a collaboration with Sun Educational Systems to employ undergraduate and graduate students, programmers, and in-service teachers in summer internships at Sun to develop Java-based blocks of instruction intended for secondary school math and science education and to test these blocks in local school districts. The current project extends this work in the following directions: a) The author is continuing to improve and develop the transformed astronomy course, making the resources available and easy to use for other faculty members in the department; b) The author is working with the administration faculty in other math and science departments at the University of Colorado to help them adopt some of the methodology of the transformed course, including software and the employment of undergraduate learning assistants for their own introductory courses; c) The author is working with the administration, faculty in science and mathematics research departments, faculty in the School of Education, and with Sun Educational Systems to develop an attractive undergraduate curriculum to recruit and train talented students for careers in K-12 science and mathematics education.